I-Corps: A Robot for Joint Ground and Airborne Operations - Hybrid Robot

This Innovation Corps project proposes to test the commercial feasibility of a robot that can move on the ground, fly, and hover. In the ground mode, the rotors and stabilizer bar are folded down along the length of the robot's body. It transforms into its flight mode by positioning itself on-end, with its long axis oriented vertically rather than horizontally, and unfolding its flight mechanisms. This type of robot offers several key benefits: 1) Capability to carry out complex missions, and return to home base, 2) Un-assisted take off (ability to switch locomotion modes at will), 3) Hovering (maintaining position in the air), 4) Ability to scale large obstacles and fly over rough terrain, and 5) Efficient ground-mode travel. While some of these benefits could be realized with a small helicopter, the fourth item, "efficient ground-mode travel", sets this design apart by giving it the ability to conserve energy while still making progress toward its objective.

A robot that has the capability to switch air and ground modes at will as many times as necessary to complete a mission, with "stop-and-go" capabilities both on the ground in the air, enables adaption to diverse missions, uncontrollable environments, and unpredictable threats. Many missions require movement through terrain which is not easily traversable, such as in an earthquake search-and-rescue scenario. In addition to search-and-rescue applications, this type of robot would be ideal for many other applications such as: covert surveillance, perimeter surveillance, reconnaissance, law enforcement, hostage scenarios, special force operations, hazardous and/or contaminated (nuclear, biological, chemical, or radiological) area inspection, and any mission which requires situational awareness over the line-of-sight or over the line-of-reach.